Mathematical Modeling of Materials Interfacial Motions

Dr. Yip plans to investigate the motion of interfaces in solid materials
from a mathematical point of view. He will concentrate on two topics.
The first one concerns the modeling of epitaxial thin film growths.
These films can have important semi- or super-conducting properties.
The goal of this work is to accurately describe the thin film
evolutions at large length scales. The investigator plans to capture the
surface diffusion and nucleation phenomena on the film surface at the
continuum level. Both of these mechanisms can have profound effects on
the film growth and the resultant film properties. The starting point of the
research is the Burton-Cabrera-Frank model for the behavior of atomic layers
and its generalizations. The mathematical content of this work involves
nonlinear partial differential equations and numerical simulations.
The second topic is to investigate the effects of noise on motion by
mean curvature in the case of non-uniqueness. Such type of motion is
a simplified model for surface evolutions in solidification processes.
It is well known that the equations can possess more than one solution.
The question arises which is the physically relevant one. This non-uniqueness
is a major obstacle to a better mathematical understanding of the interface
motion. In particular, if the solutions are not unique, it is not clear which limiting
solution will be picked by approximation schemes. Dr. Yip plans to investigate
the selection effects brought out by the presence of noise, that is small random
perturbations. Such an approach has potential applications in many other
types of nonlinear evolution problems.

The mathematical modeling of materials growth phenomena has long been
an active research area. New materials are being continuously searched
for and manufactured. A correct mathematical model can predict and
control in positive ways the outcome of the production processes.
This research has two goals. The first is to bridge in an
accurate manner the microscopic and macroscopic descriptions in
epitaxial thin film growths. These films have great applications
in electronic materials. The second is to investigate the effects of
"noise" (that is, random perturbative effects) in the modeling of the motion
in interfaces in materials, such as the interface between different components
in alloys. Even though such noise is known to be present in materials growths,
its consequences still have not been understood completely. Both topics will
involve mathematical analysis and physical intuition.